High-Performance Network Connection in Support of Meritorious Research at Kansas State University

This award is made under the high performance connections portion of ANIR's
"Connections to the Internet" announcement, NSF 96-64. It provides partial
support for two years for a DS-3 connection to the vBNS. Applications
include projects in high performance scientific computations, high energy
physics, software verification, digital libraries, distributed simulation
modeling and collaborative circuit design. Collaborating institutions
include the University of Illinois, University of Kentucky, Sandia Labs,
Michigan State, California Institute of Technology, Pacific Northwest
National Laboratory, Fermi Labs, University of Cinncinati and Columbia
University.